Regulation of Myelin Biogenesis: RabX, a Novel GTP-Binding Protein

9983255
larocca

The myelin sheath is a highly specialized membranous structure that
surrounds axons of the central and peripheral nervous systems and is
essential for the normal saltatory conduction of the electrical impulse
along the axon. The cells responsible for the formation of myelin in the
brain are called oligodendrocytes. Some of the myelin proteins are
synthesized in the body of the oligodendrocyte and subsequently transported
by small vesicles to the place where the myelin is formed. Similarly,
myelin components can be transported from the myelin sheath to other parts
of the oligodendrocytes by means of small vesicles. The formation,
maintenance and remodeling of the myelin sheath depend at least in part on
the intracellular transport of vesicles. The transport of vesicles is
regulated by controlling both vesicle formation and fusion. At present
little is known about the mechanisms in oligodendrocytes that regulate this
traffic, because of the previous absence of definitive experimental
approaches to sort out the various signalling components that function in
living oligodendrocytes. We were able to design an approach that allows
the visualization of different pathways of vesicle transport in living
oligodendrocytes. We isolated from oligodendrocytes a novel gene that
codifies for a protein, designated RabX, which is a member of a family of
proteins that are known to regulated specific vesicle trafficking pathways.
The Rab family of proteins regulates intracellular transport of vesicles
controlling both the formation of vesicles in the membrane donor
compartment and the fusion/targeting of vesicles in the acceptor
compartment. Additionally, Rab proteins appear to be involved in the
movement of the vesicles from the donor to the acceptor compartment, which
is facilitated by elements of the cell cytoskeleton. The functions of Rab
proteins to regulate different steps in intracellular vesicle transport
depend on their ability to alternate between two conformational states,
inactive (GDP-bound) and active (GTP-bound). The capacity to change
conformational state relies on GTPase activity. Our research will be focus
in the study of RabX GTPase activity and in the analysis of the movement in
living cells of vesicles containing RabX. Using molecular biological
techniques RabX will be attached to EYFP (a fluorescent protein). This
chimera protein (RabX-EYFP) will be express in different cells including
oligodendrocytes, and since it is fluorescent we will able to see the
intracellular compartment that contain Rab0-EYFP by fluorescence
microscopy. By taking pictures of the cells at different times we will
able to study the movement of vesicles that contain RabX-EYFP. It is
expected that this research will result in a better understanding of how
RabX regulates the intracellular transport of vesicles in the
oligodendrocytes. This information is essential for knowing how myelin
formation and remodeling take place. We believe that this basic knowledge
will help in the design of novel treatments for recovering the myelin lost
during demyelinating disorders, such as multiple sclerosis and spinal cord
injury.